New Mexico Alliance for Graduate Education and the Professoriate

The proposed NM-AGEP is designed to triple the number of SME graduate minority students pursuing doctoral degrees and entering the professoriate over the next five years at the three NM-AGEP Universities through the following objectives: (a) coordinating efforts to support minority SME graduate students statewide, (b ) increasing the recruitment, retention and graduation of minority doctoral students in SME and supporting those students in pursuing academic careers, and ( c) institutionalizing a graduate education cultural climate that is receptive and supportive of a diverse graduate student population.